Competition, Relativism and Market Choice

Most of standard microeconomic theory focuses on the absolute level of crucial decision variables rather than on the importance of their relative magnitude among agents. The firm's profit maximization condition compares the absolute level of marginal costs with the absolute level of marginal revenue. But this abstracts from most of the strategic behavior that businessmen consider crucial. For example, two firms compete in an existing market, say, main frame computers. One firm is trying to decide whether to enter a new currently nonexistent market, say, personal computers. The decision to enter depends on expectations about what the firm's rival will do. Calculations about how one firm does relative to its rival are as important as calculations that align marginal cost with absolute levels of marginal revenue. The contribution of this project comes from developing and testing empirically a theory of product choice based directly on relative comparisons. The idea is that a firm that is behind in one market has an incentive to move into another line with higher variance outcomes, much like the trailing boat in yacht racing will often veer off from the current direction in the hopes of benefitting from an unexpected shift in the wind that would make the new course the faster one. In yacht racing, the leader maximizes his chances of winning by following the strategy of his opponent and also veering off in the new direction because the leader maintains his relative advantage over the challenger. If the wind shifts favorably for the challenger, the leader benefits as well. If it does not, the leader is still likely to maintain his lead. For the same reasons the firm that led in the original market may be drawn into competition in the new market. The goal of this project is to provide empirically testable implications for the product development strategies of firms across industries and by other observable characteristics, such as age of the firm, start-up costs, and inherent riskiness of the business. The high quality and originality of the preliminary work by the investigators on this subject show they have the ability to accomplish this goal.